U.S.-Australia Project Development Visit: Investigating the Relation Between Early Syntactic and Vocabulary Development Using a New Comprehension Paradigm

9731870 Naigles This proposal development visit will allow the principal investigator, Professor Letitia Naigles of Yale University, to travel to LaTrobe University in Victoria, Australia, for two weeks to discuss a cooperative research project with Edith Bavin of the LaTrobe University School of Psychological Science. The subject of the study is the relationship between early syntactic and vocabulary development. Previous studies have approached the problem from the point of language production, with mixed results. The new method they will apply, comprehension method of preferential looking, to assess young children's grammatical knowledge. The project will establish the new method in Australia leading to more accurate assessments of linguistic knowledge in children acquiring English around the world. The Australian investigator, Edith Bavin, is internationally known and respected for her linguistic research. She has recently turned her attention to the acquisition of knowledge, particularly native languages of Australia. Thus this collaboration also holds the possibility of increased insight on the main problem based on knowledge of acquisition of languages other than English. This is a new partnership which promises to lead to increased cooperation in linguistics between the United States and Australia.